Comparison of Three Individual Transferable Quato Fisheries

9318878 McCay This project involves the research of a cultural anthropologist from Rutgers University. The behavior of fishermen and managers in three fishery management systems in North America will be studied: the Atlantic sea clam fishery in the Mid-Atlantic region, the inshore groundfish fishery in Nova Scotia, and the small inshore dragger fishery in Newfoundland. The project will interview workers about the common-property management system known as "individual transferable quotas" (ITQs). These are intended to restore some of the positive effects of market regulation and improve incentives of fishers to conserve. This project is important because it will advance our understanding of the management and conservation of a vital natural resource system: our fisheries. Better understanding of the attitudes, behavior, patterns of incentives, effort, ownership and governance will help inform public and professional debate about natural resource conservation. ***